A Chemistry Career Stimuli Program for High School Under- achievers

The Chemistry Department of Cabrini College will carry out a six week residential program on the college campus to introduce sixteen high potential 9th and 10th grade high school students to the methods and instrumentation of lab research in Chemistry /Environmental Science. The participating group of students will be partially selected from a group previously "adopted" by this Department during their eighth grade. The participants all would be from a disadvantaged area of Philadelphia and would be composed of approximately 50% minority and background and be approximately a 50-50 mixture of male and female students. A lecture series of approximately 24 lectures in Environmental Science and a second set of lectures on current Science and Society issues would be presented with class meetings each day for six weeks. A set of familiarization and support lectures in mathematical techniques, writing assignments of a technical nature, and chemistry career options will be interspersed with the regular lecture topics. The laboratory component of the program will consist of 12-15 hours weekly of student hands-on research under the direction of a member of the senior staff. The research projects have been geared to allow maximum student exposure to a variety of experimental techniques and instrumental methods.